Theory and Applications of Exponential Asymptotics

ABSTRACT Costin Costin will work on constructing a theory of analyzable functions. Obtained by taking a closure of analytic functions with respect to function operations (algebraic operations, including division, composition, differentiation, integration, etc.) they preserve many analytic function properties, including unique representation by expansions (formalizability) and permanence of relations. In addition to the intrinsic interest in exploring the limits of formalizability, there is a major practical interest in reconstructing actual solutions from formal expansions for a wide class of equations. A complete theory of analyzable functions is likely to have an impact in many branches of pure and applied analysis. Costin has carried out this construction rigorously for functions arising as solutions to linear or nonlinear differential systems near generic singularities. Costin will use new techniques in the classification of nonlinear differential systems near irregular singularities, up to analytic equivalence, in providing sharp information on the nature and location of singularities of nonlinear systems, in the study of solvability in closed form of equations, in solving connection problems and in justifying and improving hyper-asymptotic numerical methods. The technique will also be extended to cover PDE's and difference equations. Asymptotic analysis is an important method of investigation in complex systems. In many important cases however, the quantities of interest are influenced by parameters too small to be controlled by classical asymptotics. The field of exponential asymptotics has been introduced as a successful theoretical and computational framework to deal with these situations and applied in problems ranging from number theory to optics and quantum mechanics. The present project is aimed at a rigorous foundation of the field, at applying its techniques to the study of differential or difference systems, as well as at extending and improving the computational methods of this new theory.